Field Vibration Testing & Analyses of an Existing RC Building

The lack of adequately high spatial resolution data sets from field testing of full-scale structures under
dynamic loading conditions significantly limits the ability of earthquake engineers to improve their
understanding of the seismic performance of structural and geotechnical systems. For example, field
observations of highly nonlinear structural response following major seismic events have been largely
supported with qualitative observations. Instrument recordings from buildings have been an invaluable
resource over the past few decades; however, the density of instruments (with ~12 per structure being a
common allocation) is too low to enable detailed evaluations of system or component responses.
To address this shortcoming, the Civil Engineering Department at UCLA is in the process of developing
equipment to substantially enhance field testing capabilities for forced-vibration testing as part of the NSF
Network for Earthquake Engineering Simulation (NEES) program. The project, entitled Field Testing
and Monitoring of Structural Performancece, was initiated in January 2000 and continues through
September 2004. Field testing equipment being purchased consists of state-of-the-art vibration sources
(linear inertial and eccentric mass shakers), sensors and a wireless data acquisition system
(accelerometers, LVDTs, fiber optic gage readout unit, digitizers, routers, workstations), a CPT truck and
in situ soil vibration sensors, and networking equipment (data concentrator, satellite uplink station) to
allow for real-time data acquisition, processing, and world wide web broadcasting of experimental results.
The project involves only purchase and integration of the equipment; no specific research activities are
being conducted with the project funds.
Through collaboration with a practitioner-based Implementation Advisory Board (IAB) for the
UCLA/NEES project, a four-story office building in Los Angeles has been identified as a candidate for
forced vibration testing. The building is of general interest because (1) it has a very common structural
system consisting of a perimeter moment frame and an interior post-tensioned slab-column frame, and (2)
it was significantly damaged during the Northridge earthquake, causing it to be abandoned. Previous
analysis-based post-earthquake studies of the building have generally been unable to explain the observed
damage. The owners plan to demolish the structure; however, for a variety of reasons, will not do so for
approximately two years and have granted the PIs permission to conduct testing.
The proposed research involves forced vibration testing of the building using the NEES equipment as
well as detailed system identification and numerical modeling studies. Both earthquake-type and
harmonic force histories will be applied to the building at the roof level, and waveforms will be recorded
to enable evaluations of the complete structural system response, structural component behavior (e.g.,
slab-column connections and pile caps), and the response of non-structural components (e.g., partitions,
piping systems) as well as the influence of these components on the system response. A dense
instrumentation array will be utilized that will include accelerometers, displacement transducers, and
strain gauges. A wireless local area network will be installed to acquire and record waveform data,. The
detailed data set generated from the tests will provide valuable insight into the performance of this
common type of structural system and the reasons for the poor performance of the subject building during
the Northridge earthquake. The testing will also provide invaluable experience to the NEES program with
respect to equipment use protocols and data archiving models. Gaining experience on these issues within
the present funding period is particularly useful as the NEES equipment development work is ongoing,
and lessons learned can be implemented prior to the NEES system going online in 2004. Also relevant to
the timeliness of this proposal is the fact that this important building will be razed in two years.